Center for Aviation and Automotive Technology Education using Virtual E-School [CA2VES]: Workforce Preparedness for Automotive and Aviation Technicians

A consortium of two year colleges in South Carolina, Clemson University and three ATE Centers builds on previous projects to plan a center for conducting education for automotive and aviation technicians using e-learning technologies including virtual classrooms and personalized learning. Automotive and aviation curriculum materials are to be identified for inclusion in electronic format to field test the effectiveness of virtual classrooms to achieve the learning objectives for a diverse group of students in different educational settings. A community of scholars to engage students in automotive and aerospace technician education is formed through professional development workshops and interactions with industry. The dissemination of the products is also planned.